Chromosome Function

The objectives of this research are to understand some of the principles of chromosome function that relate to the control of gene expression, i.e., transcription. Specific area to be addressed concern (i) the mechanism and evolution of dosage compensation in Drosophila (ii) the human fragile-X chromosome: effect of imprinting, and erasure of the imprint, and transcription of genes at that fragile site, Xq27.3. The methods to be employed include genetic, molecular, somatic cell genetic, cytogenetic, and pedigree analysis. The significance of this proposed research is expected to be an increased understanding of chromosome function as it relates to transcriptional control. Understanding is expected to be enhanced by the use of chromosome from two of the best- understood organisms-Drosophila and humans. The basic biological principles discovered in fruit flies sometimes have direct application to human genetic biology; the converse is also true. This proposal gives two specific examples of this relationship between research in Drosophila and humans in which mutations that lead to the fragile-X syndrome, and Huntington's disease, provide a basis for renewed investigation in Drosophila of chromosome imprinting and dominant position-effect variegation.